Flexible Fair Scheduling on Multiprocessors

There has been much recent work on scheduling techniques that
ensure fairness, temporal isolation, and timeliness among
applications multiplexed on the same resource. Many systems that
could benefit from the use of fair scheduling principles have
workloads that necessitate the use of multiple processors; consider,
for example, the proliferation of Internet service providers that
host third-party websites on multiprocessor servers. Unfortunately,
most prior work on multiprocessor fair scheduling has been rooted
in task models that are too rigid to apply in many settings. The
little research on more flexible models that has been done has been
almost entirely experimental in nature, with little or no formal
analysis of the scheduling algorithms being tested.

In this project, fair scheduling algorithms based on rate-based
scheduling principles will be developed and analyzed, both formally
and experimentally. Specific project objectives include the
development of (i) fair scheduling algorithms that minimize task
migrations; (ii) extensions to these algorithms that allow tasks to
synchronize and share resources; (iii) extensions that allow real-time
and non-real-time applications to execute under a common framework;
and (iv) techniques for managing dynamically-changing workloads in
which tasks may join and leave the system.